WITHOUT WATER: CD-ROM Based Curriculum

9452784 Smith This two year project is to develop a CD-ROM based curriculum that will provide a community of learners an opportunity to solve real- world problems. With Culver Productions as a base of operations, the development process will involve a known group of science educators including Global Rivers Environmental Education Network (GREEN), University of Michigan, and Paradyme Productions. Students will identify problems based on watching a video documentary that presents opposing facts and opinions and then navigate through a rich database of video, text, graphics, GIS maps, and simulations to develop startegies to solve problems. Students will be guided through telecommunications to communicate with other schools, contact public officials, or retrieve government documents to develop their strategy. Final results will be evident in many forms including active debates and verbal communications, hands-on research, and custom produced multimedia presentations. The curriculum, "Without Water," will help teach students the role citizens play in the health of society and the earth.